CIF: Small: Non-Linear Processing and Coding for Compressive Sensing with Applications in Imaging

"This award is funded under the American Recovery and Reinvestment Act of 2009
(Public Law 111-5)."

Recently, the new field of compressive sensing has emerged with the
promise to revolutionize digital processing broadly. The key idea is
the use of nonadaptive linear projections to acquire an efficient,
dimensionally reduced representation of a signal or image directly
using just a few measurements. Surprisingly, Nyquist-rate sampling,
which has dominated how signals are acquired and processed in science
and technology since the origin of digital processing, can be leaped
over through compressive sensing theory. Such results may have a
profound impact broadly, including applications in spectroscopy,
imaging, communications, as well as consumer electronics.

In this research, the compressive sensing framework is ``extended" to
make it an integral part of a discrete-time all-analog-processing
communications system that completely skips the digital domain and
shows an excellent robustness against noise. The key idea is the use
of non-linear mappings that act as analog channel encoders, processing
the samples or compressive sensing measurements proceeding from an
analog source and producing continuous amplitude samples that are
transmitted directly through the noisy channel. Thus, all the
processing in the communications system is made in the analog domain.
In addition to its theoretical interest, the potential of this
approach in practical systems is substantial. For instance, the
proposed framework is readily applicable in practical systems such as
imaging, where it presents a performance that is very close to the
theoretical limits and clearly outperforms systems based on standard
compressive sensing. Furthermore, the idea of completely avoiding the
digital domain can be applied not just in point-to-point
communications systems, but also in more complex communications
problems such as distributed coding in sensor networks.